The 14th Annual PL/DARPA Seismic Research Symposium Tucson, Arizona (Sept. 16-18, '92)

This grant provides conference facilities support for the 14th Annual PL/DARPA Seismic Research Symposium in Tucson, AZ, Sept. 16- 18, 1992, cosponsored by the Air Force Phillips Laboratory (PL) and the Defense Advanced Research Projects Agency (DARPA). Research posters presented are basically results of PL - and DARPA - sponsored research but the proceeding and discussion are open and of general benefit to the entire seismological community.